Gromov-Witten Invariants, Moduli Spaces of Curves, and Integrable Systems

Abstract

Award: DMS-0505835
Principal Investigator: Xiaobo Liu

These projects emphasize Gromov-Witten invariants of compact
symplectic manifolds, relations in the tautological rings of
stable curves, and interactions of these topics with integrable
systems. Roughly speaking, primary Gromov-Witten invariants
count numbers of pseudo-holomorphic curves in compact symplectic
manifolds. A larger class of invariants, called descendent
Gromov-Witten invariants, can be defined by taking into
consideration powers of first Chern classes of some tautological
line bundles over the moduli space of pointed pseudo-holomorphic
maps. In the case when the manifold is a point it was
conjectured by Witten and proved by Kontsevich that descendant
Gromov-Witten invariants are governed by the KdV hierarchy from
integrable systems. The principal investigator is pursuing
generalizations of the Witten conjecture and the Virasoro
conjecture on by studying universal equations which come from
relations in the tautological rings of the moduli spaces of
stable curves.

Geometric descriptions of classical or quantum mechanical systems
are based in symplectic geometry, which takes as its basic
measurement the area of two-dimensional surfaces. The
Gromov-Witten invariants of a symplectic manifold can be
described as a family of number that count the number of surfaces
of a nice sort that satisfy certain constraints, such as
intersecting specified subsets of the manifold. Enumerative
invariants of this kind are an ancient concern in algebraic
geometry, where we count the number of solutions to a system of
equations, and the subject was recently found to be connected to
high energy physical theory, where the partition functions of
certain quantum systems on a manifold have been found to be
related to generating functions that collect families of
Gromov-Witten invariants into a manageable form.